MRI: Development of a True 3D Display that Mimics Natural Depth Perception Conditions for Research in Minimally-invasive Surgery, Microscopy, Teleoperation, and Vision Science

0421579
Seibel
The investigators are planning to build a new research instruments for a true 3D display to view high resolution 3D data with all depth cues in agreement. Current imaging systems suffer from the accommodation-vergence mismatch limitation. The proposed system will provide variable ocular accommodation cues that match vergence and stereoscopic retinal disparity demands for objects at different distances in a 3D scene. The proposed instrument promises to reduce eye fatigue and improve the quality of the 3-D images.